Spectrophotometric Measurement of pH and Alkalinity in the Pacific Ocean

Detailed and precise pH profiles will be obtained in the equatorial Pacific Ocean in conjunction with CO2 system measurements. The work entails measurements of spectrophotometric pH on each seawater sample analyzed for total inorganic carbon, CO2 partial pressure, and total alkalinity. Spectrophotometric alkalinity measurements will permit assessments of the contribution of organic protolytes to seawater total alkalinity. These measurements will be used to assist in investigations of ocean-atmosphere carbon fluxes.